An In-Depth Investigation of Quantum Tunneling of Hydrogen on Metals at Low Temperatures

9403441 Zhu It is proposed to perform an in-depth mechanistic study of the quantum tunneling diffusion of hydrogen on metals. The experimental technique used is the method of linear optical diffraction to monitor the decay of hydrogen on nickel and copper. It is proposed to (1) establish tunneling diffusion rates in the thermodynamic zero coverage limit over a wide temperature range; (2) explore the effect of immobile surface disorders on the tunneling process; and (3) determine the effect of different quantum statistics for hydrogen and deuterium. % % % % The method of laser-induced desorption is used to create density gratings of hydrogen on metals and use an optical diffraction technique to probe the time evolution of these gratings. The method will allow a study of the transport of hydrogen along metal surfaces over wide ranges of temperature, hydrogen coverage and surface conditions. It is planned to determine the mechanisms which control the diffusion of hydrogen on metal surfaces. The results may shed light on the transport of hydrogen atoms along grain boundaries in polycrystalline metals and alloys frequently used in hydrogen purification and hydrogen battery technology and in hydrogen embrittlement research. ***